Improved Modeling of Metal Forming: Bauschinger Effects in Plastic Flow

9361070 Sachs This research is to develop a new viscoplastic constitutive model which utilizes internal variables in order to model the Bauschinger effect. It will account for rate and temperature dependence, large strain kinematics and a suitable corotational stress rate. The model will be implemented using an existing Lagrangian finite element computer code and will be verified by comparing simulation predictions with experimental results for several common experimental and manufacturing configurations. ***